Calorimetric Study of Frustrated Smectic Liquid Crystals

A high-resolution ac calorimeter will be used to study phase transitions occurring in frustrated smectic liquid crystals and in binary mixtures of such molecules. The analysis of high- resolution heat capacity data will give information on critical energy fluctuations associated with smectic ordering.